Undergraduate Neurosciences Summer Program in Mechanisms of Behavior

This award provides funds to the Undergraduate Neurosciences Program at Duke University to establish an NSF-REU site which will support a Summer Undergraduate Research initiative. The program emphasizes integrative, systems, and behavioral neuroscience, reflecting the breadth of neuroscience research at Duke University. Research, and training experiences will be organized around the theme of "mechanisms of behavior", capitalizing on the strengths of the present academic Undergraduate program and targeting laboratories in which supportive and stimulating research environments are found. Duke University has a history of successful summer research programs, especially those that provide training experiences for women and minorities. The mentors have drawn form this experience in developing the present program, and are able to make use of existing administrative structures both for recruiting candidates to the program and for providing the logistical support necessary for an engaging and stimulating research experience.